Collaborative Project: Development of Statistical Modeling Methods for Analysis of Social and Behavioral Science Data with Nonignorable Nonresponse

RUI - Collaborative Project: Development of Statistical Modeling
Methods for Analysis of Social and Behavioral Science Data with
Nonignorable Nonresponse

PIs: Mortaza Jamshidian and Ke-Hai Yuan
NSF proposals SES - 0407258 and SES-0437167

Abstract

This project develops methods for modeling incomplete data that
arise in social and behavioral sciences (SBS). The main focus is
analysis of data with nonignorable nonresponse, using
structural equation models and methods that take into account the
missing data mechanism. The investigators study and develop (1)
selection and pattern mixture model approaches to jointly model
the missing data mechanism and the variation in the observed data,
(2) methods to segment the data into groups having the same
missing data mechanism via development of statistical tests of
homogeneity of mean and covariances, utilization of clustering
methods as well as latent variable regression models, (3) multiple
imputation methods that use predictive models for nonignorable
nonresponse data to impute missing data, and (4) application of
various types of bootstrap methods that take into account missing-
ness. The investigators develop theoretically sound statistical methods,
theories are assessed by extensive simulation studies, and methods
are examined by application to real data, specifically the data from the
University of Notre-Dame Adolescent Parenting Project, an on-going
longitudinal study of teen parenting.

The investigators develop statistical methodology for analysis of data
that are not complete. In social and behavioral sciences, data are
often collected in longitudinal studies and through questionnaires. Lack
of compliance of subjects (e.g., dropping out of studies and/or
incomplete responses) that leads to incomplete data is commonplace.
This project focuses on analysis of data that are missing not at random
(MNAR). MNAR occurs when a case of a variable is not observed due to
the value of that variable being atypical; for example, a subject does not
submit to a measure of the level of her depression because she is
unusually depressed. To-date, adequate statistical methodology to analyze
MNAR data has not been explored in SBS. The investigators formulate new
models, develop inferential and computational methods for MNAR data, and
illustrate the methods with social and behavioral science data sets. In the latter
respect, the investigators concentrate in applying the methodology to analyze a
set of data collected by University of Notre Dame which studies teen parenting.
The analyses are carried out in the context of structural equation modeling
which has been widely used in a variety of disciplines including education,
medicine, psychology, sociology, and other areas related to human behavior.